Low-frequency Dynamics of the Atmosphere and Climate Models Using Angular Momentum Diagnostics

The Atmospheric Angular Momentum (AAM) is a robust and convenient index of the atmosphere's zonal-mean dynamics; diagnostic studies of the behavior of AAM and its attendant zonal-mean zonal wind field u, on climate time scales, in both observations and models, continue to be of widespread interest and relevance. The PIs propose to continue AAM diagnostics using output from various GCMs. The topics are (i) seasonal and interannual variability of AAM in the AMIP2 simulations; (ii) multidecadal variability of simulated AAM (iii) 'Double CO2' experiments. The work is important because it will increase understanding of the role of AAM in the climate system.